CAREER: Research on input-output methods for nonlinear control design; Education into the next century

9502034 Teel The research objective of this proposal is to further the understanding of the dynamics and control of highly nonlinear systems. The mathematical methods emphasized will be those that seek to characterize nonlinear systems in terms of their input- output behavior. This viewpoint is flexible and can accommodate real world uncertainties and complicated nonlinear behavior. Recent breakthroughs regarding control of systems with hard limits on the magnitude and permissible rates of control signals have developed by taking this view. Part of the research plan is to show that the algorithms which have been developed for the control saturation problem are applicable to a wide variety of problems. The significance of the control algorithms will be enhanced by investigating optimization strategies and rapprochement with more standard control algorithms. Indeed, these algorithms may provide a link between standard control and more recent "intelligent" control. The second part of the research plan seeks to develop both conceptual insight into and computational algorithms for nonlinear control by taking a general input-output point of view. It is believed that this will lead to results analogous to many fundamental results that are known for linear systems: a parameterization of stabilizing compensators, optimization over such parameters, simultaneous stabilization, etc. Software development will be a means of transporting the research developments of this proposal to the industrial sector. The educational objective of this research is to facilitate a learning environment which is tailored to the unique aspects of today's engineering student. The premise is that today's students are very different from those that preceded them, with regard to perspectives, values and expectation. Accordingly, changes in teaching styles and perspectives must be investigated. The educational plan calls for critical self-and outside- examination of teachin g styles and methods. Partially, this will occur within the structure of a faculty development program at the University. In addition, the plan calls for a thorough re- examination of laboratory teaching methods, especially in the subfield of control. A consideration of visualization techniques as a teaching tool is emphasized. Finally, a teaching approach that motivates the student through the history of and vision for electrical engineering and control is recommended. In this regard, mentoring is seen to be a crucial part of the education process. ***